The Use of Microcomputers to Substitute for and Supplement Traditional Laboratory Equipment in Psychology

The Department of Psychology attempts to provide its students with a rigorous, scientifically-based education in Psychology. With the limited resources available to a small school and Montana's current budgetary crisis, providing and maintaining the laboratory equipment necessary for a quality education is becoming increasingly difficult. The project would use computer-simulated laboratory exercises to supplement and substitute for the use of expensive standard laboratory equipment to provide a relatively inexpensive solution to this problem, at the same time providing students with pedagogically-sound laboratory experiences. Microcomputers can combine the functions of numerous pieces of standard laboratory equipment. Software is available and can be written that provides students with experience with a broad range of psychological concepts and experiments.